Nonlinear Phenomena in Molecular Energy Transfer

Professor Turgay Uzer is supported by a grant from The Theoretical and Computational Chemistry Program to continue his studies of energy transfer processes in isolated molecules and on surfaces. This research is important in helping chemists to understand the physical processes involved in laser photodissociation, and laser photodesorption from surfaces. Uzer's theoretical and computational work concerns the fundamentals of intramolecular energy flow, the dynamics and quantization of nonseparable oscillator systems, modeling of intramolecular dynamics and unimolecular reactions, and microscopic dynamics at the surface-adsorbate interface. Uzer has developed a novel "asymmetric top mapping" procedure which he will use to investigate the mechanism of localization and to infer the structure and systematics of quantum states near intramolecular bottlenecks. He will apply this type of analysis to the study of the photodissociation of hydrogen peroxide and alkyl hydroperoxides. The dynamics and feasibility of molecule specific photodesorption will be investigated for hydrogen on aluminum oxide. Finally, he will also investigate the microscopic mechanisms by which coverage influences adsorbate relaxation on surfaces.